SENSORS: Theory and Practice of Sensor Network Architectures

Populating our world with networks of sensors requires fundamental understanding of tech-
niques for connecting and managing sensor nodes with a communication network in scalable
and resource-e .cient ways.The proposed research involves a comprehensive program of sensor
network architecture,design,evaluation,and implementation that integrates research expertise
in the areas of wireless networking and multiuser communications and provides numerous op-
portunities for enhancing student research and education in the area of sensor networks,at both
undergraduate and graduate levels.
The dominant trend in sensor network practice is to consider a dense collection of tiny sensor
nodes with limited computation and communication capabilities,all connected via a .at,or
ad hoc,wireless network.Yet theoretical studies in multiuser communications suggest that
substantially improved performance can be obtained through sophisticated coordination among
nodes,requiring more versatile radios,hierarchy,and perhaps even sparse wired connectivity.
Thus,the objectives of the proposed research are to:1)identify network architectures that
permit the implementation of sophisticated transmission schemes that have been theoretically
studied,2)analyze such schemes in the context of sensor networks and design new ones adopting
a cross-layer approach and 3)implement these schemes and verify their behavior on a real
testbed.
The intellectual merit of the project lies in the improved understanding of an important
emerging class of wireless networks,and in the attempt to unite theory and practice.Clos-
ing the widening gap between theoretically proposed strategies and practically implemented
ones is crucial to understanding and improving the performance and lifetime of these resource-
constrained networks.Through a rigorous analytic approach,contributions to the emerging area
of network information theory are expected,leading to substantial advances in energy-e .cient
and delay-constrained protocol design.
The broader impact is manifested in part through an e .ort to integrate teaching and research.
Experimentation on a hardware platform plays an integral role in both research and education.
It will be used for veri .cation,as well as for undergraduate and graduate projects that provide
students with hands-on experience in a real sensor network testbed.This project will enable
the acquisition of the necessary hardware.Two newly developed graduate courses on multiuser
communications and wireless networking will bene .t greatly from this project.It is anticipated
that by such close linking,research and education cross-fertilize each other within the framework
of this proposal.Further,since the proposed architectures and related issues carry over to other
important classes of networks,the .ndings from this research will have an impact on a much
broader class of wireless networks,including multihop cellular networks,that may soon become
signi .cant for a major part of our society.The broader impact will also be felt through a broad
dissemination of results and through current and future interactions with other universities.
A-1